Center Evaluator for IUCRC in Ergonomics

Abstract This award provides funding for three years to Dr. Craig Blakely to serve as an Evaluator to the Industry/University Cooperative Research Center in Ergonomics at Texas A&M University.